U.S.-France Workshop on High Performance Polymers, Annecy, France, June 1-5, 1992

This award will support a U.S.-France Workshop in high performance polymers organized jointly by Matthew Tirrell of the University of Minnesota, Alain Michel of the Laboratory of Organic Materials, and Alain Fradel of Pierre and Marie Curie University, Paris, France. New developments in high performance polymer materials are of technological importance in microelectronics, ceramics, medicine and separation processes. The workshop will focus on the development of high performance properties beyond the current norm. They will address developing multicomponent materials of increased strength, chemical or thermal resistance, enhanced electrical conductivity, improved nonlinear optical properties, and effectiveness as interfacial agents. Multicomponent refers to existing composites, copolymers, blends, grafts and semicrystalline materials. The workshop participants will exchange information and review the state of the art in this area. This workshop will bring together strong French expertise and tradition in macromolecular chemistry and American experience spanning the range of chemical synthesis to processing. It is expected that future research areas, including joint activities, will be defined.